ITR/IM SIOExplorer: Web Exploration of Seagoing Archives

Abstract

In this proposal, the PIs propose to build a system that would open the SIO shipboard data archives to web access with modern tools for users that would allow data queries and data mining via the Internet. This effort is visualized as part of a larger data base infrastructure for the wide MGG and Oceanographic community. The PIs would first develop a prototype system, then test the system and ask for comments from community users, and finally add more data and tools to the system. The effort would extend over a period much longer than the present 3 year grant, and is partly supported by SIO and others. An advisory committee would help guide the efforts of the group.